1994 Gordon Conference on Mitochondria and Chloroplasts, May 1-6, 1994, Volterra, Italy.

9401751 Gruissem Organellar genetic systems are found in all eukaryotic cells. Investigations into their functions and regulatory processes are critical to the understanding of eukaryotic cell biology. Increasing evidence points to mitochondria in animals, and to mitochondria or chloroplasts in plants, as the underlying cause for clinical myopathies and plant diseases. In addition several important processes that affect RNA processing and protein function have emerged from the study of animal, yeast, and plant mitochondria, as well as plant chloroplasts. %%% The May, 1994 Gordon Research Conference on Mitochondria and Chloroplasts in Volterra, Italy, will bring together an international group of geneticists, molecular biologists, biochemists, and cell biologists to exchange ideas and information on a wide range of problems in these organelles. It will be the first time that this meeting is held outside the U.S. This biannual gathering has become a principal meeting ground for those interested in organelle biogenesis and function. It is the only meeting with the express purpose of integrating knowledge from the chloroplast and mitochondrial fields. Significant new developments have occurred in the field since the last meeting in 1992. ***